Polarization Dependence of Linear and Nonlinear Gains in Semiconductor Quantum Wells

9522864 Chuang Fundamental linear and nonlinear gains and their polarization dependences in strained semiconductor quantum wells will be investigated theoretically and experimentally. We will design strained quantum wells such that (a) the gain of the TE (parallel to the quantum-well planes) polarization is dominant, (b) the gain of the TM (perpendicular to the planes) polarization is dominant, and (c) the gains of both polarizations have nearly the same magnitude using InGaAs/InGaA1As and InGaAs/InGaAsP material systems. Samples in which the light-hole subband is aligned with or above the heavy-hole subband can be designed such that the gain of the quantum-well active region becomes polarization insensitive. Nonlinear optical gain processes such as band filling and spectral and spatial hole burning effects in strained systems play important roles in these inverted media and will be investigated. Strained quantum wells have important technological applications in optoelectronic devices including semiconductor optical amplifiers and lasers for optical communication systems. With our comprehensive study of the linear and nonlinear gains, polarization-insensitive semiconductor optical amplifiers using strained quantum wells will be designed using both InGaAlAs and InGaAsP systems. ***